Research in Black Hole Physics and Relativistic Astrophysics

This award will support research in relativity and relativistic astrophysics. A large component of the research is aimed at the numerical solution of Einstein's equations by supercomputer simulations. The proposed research will have a broad impact on our understanding of fundamental physics. The first real tests of general relativity in the strong field regime of black holes are just beginning to occur with experiments like LIGO. To confront theory with observation, one must be able to calculate what the theory predicts. Are the black holes that LIGO observes the black holes predicted by Einstein's theory? The research will also have an impact on astronomy. Mergers of binary systems containing neutron stars can lead to the emission of electromagnetic and neutrino signals, as well as gravitational waves. As more of these events are seen, better simulations are needed to help determine the properties of the sources. The research will also have an impact on the broader area of computational science. The computational techniques to be developed here can be used to solve problems in many other areas, including fluid dynamics, meteorology, seismology, and astrophysics. Young researchers trained in these techniques are in great demand. The computational techniques developed here are also likely to have an impact commercially and in national laboratories. Relativity and black holes continue to fascinate the public and allow science to be communicated broadly. Movies of simulations produced by the investigators will continue to provide public outreach.

To solve Einstein's equations, the investigators will use high-accuracy computational techniques suited to the mathematical properties of the equations. These methods solve the equations at a much smaller computational cost than other techniques. The investigators will include ever more realistic descriptions of the microphysics in the simulations, such as the equation of state of nuclear matter, neutrino effects, and magnetic fields. The investigators will also develop a new code for computational astrophysics that is designed to take advantage of upcoming exascale machines in a way that current codes cannot. This new code will be based on discontinuous Galerkin methods and task-based parallelism. It will provide transformative capabilities not only for numerical relativity, but for many problems in computational astrophysics.